National High School Engineering Design Competition

The proposed National Engineering Design Competition (NEDC) will provide an engineering design experience for high school students working in teams. The purpose of this activity is to encourage and support students who are interested in pursuing careers in engineering, technology, science, and mathematics. State and local level competitions will be held and will focus on the application of knowledge to real problems. Professional engineers will provide mentoring, using tutorial seminars, for techers and students. The competition will provide information and an experience to help the student gain a better understanding and appreciation for engineering.